Technical Assistance and Documentation Services

9453736 Barnes A 10.5 month agreement is to be established with the Human Systems Management and Development Corporation/The McKenzie Group (HSMD), Dr. Floretta McKenzie/Dr. James Barnes, CoDirectors, to provide technical assistance and other services to the 25 cities eligible to apply for the Urban Systemic Initiative Program (USI) planning and implementation grants. The Contractor shall: (1) notify the eligible cities concerning the availability of technical assistance (TA) services; (2) assist cities in developing the information necessary to produce an effective USI (such assistance may take the form of on-site visits, reverse-site visits, advice, materials, seminars and forums on key issues, and the provision of consultants with expertise in the cited areas); (3) inform cities concerning other NSF programs, and possible ties with other national, state, and local groups promoting systemic reform in science and mathematics education; (4) provide an orientation for those cities which receive a planning and/or implementation grant; (5) establish an overall management and administrative structure for the TA program and other services; (6) meet monthly with USI staff; (7) author commentaries and other descriptive pieces that reflect learning about systemic change and the USI community; (8) conduct meetings, conferences and seminars; (9) establish an electronic network between USI cities and NSF; (10) publish a USI Newsletter; (11) fully document the USI program; and (12) develop and refine a data base for use by the USI cities. ***